CAREER: Navigating Thermodynamic Landscapes for Phase Equilibria Predictions using Molecular Modeling and Machine Learning

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

This CAREER project will use advanced computer simulations and machine learning algorithms to advance fundamental understanding of adsorption of gases in porous materials. Adsorption involves the concentration or rejection of molecules interacting with a material surface. It is a ubiquitous phenomenon present in our everyday lives and in many industrial and biological settings. Important technological applications that depend on adsorption processes include drug delivery, power production and energy storage, water harvesting, and others that affect the overall societal well-being of humanity. This research project makes use of powerful computational modeling tools to uncover a comprehensive picture of the interactions between the gas species and materials onto which they adsorb. This research will lead to fundamental insights into the adsorption process and the identification of promising new adsorbents that are crucial for technological advancements in areas of national importance including health care, climate change, and water scarcity. Integrated outreach and education components within this project include increasing literacy of machine learning at the undergraduate and graduate levels through course design and hosting middle school teachers through the Notre Dame Senior STEM Teaching Fellows Residency program to create course materials for 6-8th graders centered on probability and statistics.

This research program will integrate advanced molecular modeling and machine learning methods to create a universal gas adsorption model. By specifying the absorbent material, an adsorbate gas species, and the adsorption conditions (temperature and pressure), the model will be able to accurately predict the amount of gas that is adsorbed within the material pores at equilibrium. An adsorption model with such predictive capabilities would constitute an important engineering design tool, eliminating the current bottleneck posed by the high computational cost of screening all potential materials with molecular simulations and fundamentally advancing drug delivery, power production and energy storage (e.g., hydrogen), and atmospheric water harvesting and carbon capture technologies. The development of models to predict the nature of gas physisorption in porous materials will be developed within an active learning (AL) framework to efficiently navigate the large chemical spaces of adsorbates and adsorbents. The properties of absorbent materials and gas molecules will be represented as ‘features’ alchemically to maximize the range of materials and molecules that can be studied in a computationally feasible manner. The AL algorithm will inform, in an automated fashion, which simulations to perform to achieve accurate predictions with a limited number of simulations, thus allowing for an exhaustive yet efficient exploration of the feature space. The research plan is based on three objectives: (1) implement and validate an active learning framework capable of navigating adsorption landscapes, (2) navigate the feature landscapes of simple gas adsorbates, and (3) simultaneously navigate the feature landscapes of molecules and porous materials for gas adsorption. Because the proposed AL framework will be readily adaptable to other adsorption/material design scenarios, phase equilibrium studies beyond gas adsorption will benefit. These research efforts will be complemented by outreach efforts to middle schools and the public.